An Expert System for the Control of Lithography Overlay in Advanced Semiconductor Manufacturing

The resolution and overlay accuracy needed for advanced semiconductor manufacturing has tightened about 30% every two and one-half years. Current design rules lie near or below the actual wavelength of visible light. Therefore, optical tools for pattern generation are now supplemented by new technologies such as X-ray and electron beam exposure systems. Manufacture of devices under a sub-half micron design rule requires patten overlay control to an accuracy more severe than ever before. The task is complicated by the mix of new lithography tools, which may employ dissimilar technologies, but nevertheless must be calibrated and integrated. So far, the most successful approach has been to model the distortions of printed patterns against the parameters of the lens and alignment systems. However, new and stronger methods are needed. This SBIR Phase I research explores an expert system for process overlay control. Called the Lithographic Imaging METrology (LIMET) module, the LIMET-expert uses new techniques to provide the modeling and statistical experience available to customize models and algorithms. LIMET-expert has application in the real- time control and maintenance of the process as well as the pattern generation equipment.